NSF Young Investigator: Language and Compiler Technology for Parallel Machine Organizations

Topics pertinent to parallel system development are examined. Strategies for optimizing interprocessor communication (such as grouping computations which use common data to improve data locality or reduce remote access by the allocation of data to local processor memory) are investigated. Also, tools for simplifying the programming of applications for distributed memory machines are developed.